Semiconductor Doped Glasses for Nonlinear Integrated Optics

Despite the inherent increase in optical power density available with guided waves, practical nonlinear guided wave devices have not been forthcoming due to the lack of appropriate materials. The researchers are investigating a candidate material of great promise, semiconductor doped glass, which has recently been shown to have large nonlinearities from optically induced plasma creation, and with potentially picosecond excitation and recovery times. The rise and fall times of the nonlinearity are being investigated experimentally using degenerate four-wave mixing with a sub-picosecond laser source. The commercially available materials being investigated consist of small semiconductor crystallites in a glass matrix. Deposition techniques are also being developed to fabricate semiconductor composite films. The fabrication of thin-film composite semiconductor-dielectric materials from a range of substances should broaden the range of device possibilities achievable, and enhance understanding of the mechanism responsible for the optical behavior of these materials in both the linear and nonlinear regimes. Nonlinear channel devices are going to be fabricated by using ion exchange in commercially available glasses by lithographic techniques to form the required patterns in the deposited semiconductor films.